U.S. Support for Central Scientific Coordination and Integration Activities of the International Geosphere- Biosphere Programme (IGBP)

9320648 Marks NSF support is provided from funds allocated by Federal agency members of the interagency CEES Sub-Committee on Global Change Research, for shared international funding of the centralized costs of planning for the International Geosphere-Biosphere Programme (IGBP). Planning and development of a series of core research projects of the IGBP will be undertaken. The IGBP and these core projects will support development of a global observing system; will contribute to international assessments of global change sci- ence, in particular to those of the Intergovernmental Panel on Climate Change (IPCC); will improve and facilitate the flow of data and information in support of IGBP research; and will assist scientists and scientific institutions in developing countries to participate more fully in and support such research. Results of the IGBP will provide input to the analysis, modelling, and interpretation of global change. To achieve these objectives, meetings of international scientific committees and scientific steeering groups for the core projects will be convened. Scientific and technological reports which result from IGBP activities will be prepared and distributed. The IGBP Secretariat will support these activities.